Engineering Scholarships

This project is providing engineering scholarships to academically talented students who have financial need. The scholarship program is contributing to eighty percent of the entering students continuing their studies to complete the two-year engineering technology program. Many of the students being served by the program are from low-income rural families and Native American communities. Approximately seventy percent are first generation college attendees. The establishment of Learning Communities and extensive faculty mentoring are major components of the overall educational experience.